Renormalization Group Methods

This award in mathematical physics supports the continued development of the renormalization groups as a rigorous mathematical tool for the study of quantum field theory models. In this way one can study the basic properties of theories which describe the elementary constituents of matter. It is also a tool for studying critical phenomena in statistical mechanical systems.